Collaborative Research: Reassessing deep-sea seafloor biodiversity using eDNA and ecological models

The deep sea floor is one of the largest ecosystems on Earth, yet it remains among the least explored. This hidden environment plays a critical role in global processes, but the biodiversity and distribution of small deep-sea organisms, many of which are fundamental to ecosystem functioning, remain poorly understood. This project integrates environmental DNA (eDNA) approaches, traditional taxonomic identification and advanced computational modeling to increase understanding of the distribution and diversity of deep-sea species. By enhancing the ability to detect and characterize sea floor biodiversity, this project provides essential information for evaluating the impacts of human activities, including deep-sea resource extraction. This research also estimates species rarity and vulnerability to disturbance, generating data that can promote translational solutions for the management of marine resources in deep-sea abyssal plains. This project will train undergraduate students through research and a research cruise, offer workshops in science communication and data analysis, and develop resources for using artificial intelligence (AI) tools in coding, helping to build a technically skilled workforce and strengthen capacity in ocean science.

The deep seafloor represents one of the most extensive ecosystems on earth, while remaining one of the least studied habitats on the planet. Although there is a broad understanding of the general patterns that determine community assembly and species richness in the deep sea (e.g. POC flux, bathymetric gradients, sediment grain size in local patches), understanding of the distribution and geographic range sizes of most benthic species remains severely limited. A major unresolved question is whether abyssal plain sediments contain broadly distributed, cosmopolitan fauna, or whether the reliance on morphological datasets is masking cryptic species with highly restricted geographic distributions. This project combines cutting-edge eDNA sequencing, classical morphological taxonomy, and ecological modelling frameworks to (i) characterize population size and biogeography for deep-sea macrofauna and meiofauna at local and regional scales, (ii) evaluate the environmental and evolutionary context of abyssal biogeography and species occurrences, and (iii) apply ecological models to the deep-sea benthos, using empirical data to estimate rarity and extinction risk for small-bodied benthic taxa. This represents the first large-scale investigation to integrate knowledge across macrofaunal and meiofauna size classes and leverages a “reverse taxonomy” approach to link environmental -omics data with known species identifications. This project advances ocean exploration by increasing understanding of biogeographic patterns and species ranges in the understudied deep-sea abyssal plains, which is essential for predicting ocean responses to environmental change and for informing responsible management of expanding human activities in the deep ocean.